Acquisition of a Transmission Electron Microscope

This proposal is a request for funds to obtain a transmission electron microscope. The major users of the instrument have proposed four main projects which require the use of the instrument. First, the morphology of the neuromuscular junction and synaptosomes during age-associated changes will be quantified. Second, the frequency of myelinated monoaminergic nerve fibers in rat and monkey central nervous systems will be determined to serve as a baseline for comparisons between species, over time and after experimental manipulations. Third, quantitative determination of cholinergic axons in several regions of the brain, together with quantitation of the innervation of several connections between areas within the brain will be determined. Lastly, a quantitative study of the morphology of regenerating peripheral nerve and nerve muscle development during ontogeny has been proposed.